International Conference on Computability and Complexity in Analysis

The conference is concerned with the theory of computability and
complexity in analysis, physical sciences, and engineering over the real
numbers, which is built on the Turing machine model. This research is an
interdisciplinary area between applied analysis and computability and
complexity theory, and sometimes also involves works in numerical
analysis. The goal of the research is to understand the laws of real number
computation, the computability content of existence results in analysis, and
the computational complexity of computable operators.

Computability brings to mind computers, which are playing an ever larger
role in our society. Computers operate on finite strings of digits.
However most mathematical models describe continuous problems ranging
from physical phenomena such as electromagnetism and sound waves, to
engineering applications such as bridge designs and air flows around
airplanes, to financial predictions such as expected investment returns.
Continuous models are based fundamentally on the concept of real
numbers. Although a large portion of computer resources is devoted to
compute the solutions of such continuous problems, real number
computation is not as well understood as it should be. There still
exists a big gap between the continuous nature of problem from the
physical world and the computability and complexity theory of discrete
structures. The explosion of Ariane 5 rocket on June 4, 1996, is a drastic
example. The problem at the center is that computers operate on finite
strings of digits while the real numbers are infinite mathematical objects.
The increasing demand for reliable as well as fast software requires a
better understanding of real number computation. Computable analysis is
a theory which studies the laws of real number computation. Its goal is
to bridge the gap between analysis, the mathematical theory of real
numbers, on the one end, and computability on the other. It studies
which computations in analysis, physical sciences, and engineering are
possible and which are not. The research lets us understand why a
problem cannot be solved on computers, or provides us with a better
understanding of the computability content of a continuous problem and
thus better tools for constructing more efficient algorithms. The
research outputs of the conference series are substantial. The series
has produced five volumes of proceedings containing more than 100
(refereed) papers ranging from theoretical investigations of
computability and complexity in analysis to new implementations of exact
real arithmetics as well as further developments of existing
software packages.